Multi-study Genomic Data Analysis

This project's goal is to develop innovative statistical approaches to
multi-study genomic data analysis. Specific targets include
generalization of meta-analysis tools used in medicine and social
sciences to the genomics context, metrics for evaluating reproducibility
of expression measurements across platform in the absence of a gold
standard, approaches for deriving and validating common expression
scales across platforms, and a novel reformulation of the combination
problem based on constructing ``coexpression matrices'' in which an
element represents the coexpression of a subset of genes in a given
study. The project includes software implementation, application to a
set of representative genomic analyses, and development of public-domain
support website.

Genomics studies are studies that measure simultaneously the activity of
a large portion of the thousands of genes in a biological system. These
have given a great impulse to the life sciences in the past decade, and
changed the way in which biology, medicine, and biotechnology make
progress. A large number and variety of genomics studies are accruing.
Because of cost and difficulty in the acquisition of biological samples,
especially in medicine, the majority of genomic investigations are
carried out using a limited number of samples, and focus on highly
specific problems. This scenario poses two important questions for the
genomics community. First, given the wide variety of genomic
technologies and protocols, there is concern about reproducibility of
genomic findings across technologies and laboratories. How can one
systematically use the large body of genomic information available to
assess reproducibility? Second, given the large, but fragmented and
heterogeneous, set of studies that are accruing, there is concern about
the ability of the scientific community to efficiently integrate the
resulting knowledge. How can one perform analysis of genomics data
across studies, across technologies and across related biological
systems? This project's overall goal is to address these two questions
by developing data analysis tools for comparison and integration of
genomic information across studies, across measurement technologies and
across biological systems. Today, multi-study genomic analysis are rare,
despite the wide availability of genomic data in the public domain. The
premise underlying this proposal is that this is due in large part to
the lack of specific, systematic and rigorous statistical approaches and
the associated software tools. This project aims at providing such tools
and therefore, if the investigator's premise is correct, will promote a
more extensive, more efficient and more rigorous use of the vast
resources made available by the massive investment made on genomic
studies.